RECOMB Conference Support

ABSTRACT

NSF-0507056

Pevzner, Pavel

Research on Computation in Molecular Biology (RECOMB) is the leading meeting in bringing computer scientists and molecular biologists together to focus on the computational aspects in the interdisciplinary field. The steering committee are internationally recognized leaders in computer science, statistics and computational molecular biology. The meeting provides peer reviewed plenary presentations, poster sessions and publication of papers and abstracts of posters. The engaging atmosphere enables all level of researchers to engage in discussion and exploration. Funds enable graduate students to participate in the meeting. The recruiting focus is on junior researchers and members of under-represented groups.